RUI: Tunneling Measurements on Simple Cubic Perovskite Superconductors

In studying the physics of high-Tc superconductors, use the technique of tunneling to measure the energy gap as a function of temperature; try to obtain sandwich-type tunnel junctions of sufficiently high quality to permit measurement of the electron- phonon spectral function.